1995 Particle Accelerator Conference and International Conference on High-Energy Accelerators

9507062 Schriber A Particle Accelerator Conference, the latest in a series that occur biennially, this year combined with the International Conference on High Energy Accelerators, is supported in part this grant. this provides a forum for presentation of the newest developments in accelerator technology, and for exchanges of ideas to stimulate further advances and generate new ideas. The published proceedings, available in print as well as on CD-ROM, are valuable references for researchers in acceleration methods and technology. ***